SGER: Lateral Diffusion of Rhodopsin in Mammalian Rods

It is known that infant rodents and humans are visually less sensitive than adults of the same species, but the mechanisms for the change in sensitivity are not known. This Small Grant for Exploratory Research project has a multidisciplinary approach with a biophysicist and an ophthalmologist collaborating on this problem. A new technique is developed for measuring the photopigment, rhodopsin, inside the photoreceptor cells of the eye. A novel kind of microspectrophotometer is being used to measure the absorption of light from within an area even smaller than the photoreceptor cell itself. This microscale measurement allows estimates of the concentration of rhodopsin that is packed on the cellular membranes, and compare the values for infant and adult eyes. This approach also allows measuring the lateral diffusion rate of rhodopsin within the membranes, which is important because it determines the rate of response of the cell, and so contributes to the sensitivity of the eye. This work will have impact on visual neuroscience and infant development, and the technology may well prove useful for other kinds of subcellular measurement techniques in biology.